REU: Chemical, Optical, and Condensed Matter Physics at Georgia Tech

An REU Site will be continued in the School of Physics at Georgia Tech. Students will be recruited nationally, and those selected will be involved in the research programs in chemical, optical, and condensed matter physics.